Process and Project Management for VLSI Design Environments

This research is on IC circuit and system design frameworks, focusing on process and project management. Tasks include: (1) developing a model of design development, tasks, and history appropriate for the CAD framework; (2) creating a prototype implementation of a task manager to enforce the proper sequencing of design activities and sharing of work among project members, which will be integrated into the OCT framework; and (3) exploring the use of process specification and history to provide effective feedback to project managers.